Modernization of the Nuclear Instruments and Methods Laboratory

A high-purity germanium detector system and PC-based multichannel analyzers have been added to the Nuclear Instruments and Methods Laboratory course to upgrade and improve it. The germanium detector gives students experience with modern high-resolution gamma-ray spectroscopy, and enables them to undertake more advanced experiments. The PC-based multichannel analyzers make it possible for students to execute experiments and data analysis at levels of sophistication common to research laboratories today.